National Coalition for Science in Afterschool Conference Proposal

The Lawrence Hall of Science will host a follow-up conference to the January, 2004 conference of the National Coalition for Science in After-school. The goal of this 2nd conference is to take the emerging National Coalition for Science in After-school further, bringing in additional organizations and points of view, to take the vision the next step into action plans that will establish an infrastructure, a research agenda and framework, an advocacy campaign and a plan for sustainability that will include further networking among participants. The conference will contribute to the enhancement of science education for the more than ten percent of the Nation's youth who currently participate in after-school programs, many of whom are least well served in the formal educational system. The conference will bring together leaders in science education and after-school programs to combine their best thinking about ways to share current ideas and to create new partnerships, models, research initiatives and organizational structures to advance their work. The conference will allow current and potential leaders in STEM and after-school organizations to inform one another, share best practices and form strategic alliances. In addition to traditional dissemination mechanisms (website, listserv, conference report), the conference will result in an action plan that includes extending membership in the Coalition to additional organizations and its messages to new audiences, including those who work with students with disabilities, community organizations and parent advocates. In addition to Lawrence Hall, the lead organizations in the Coalition are the Exploratorium, TERC, the Children's Aid Society, the National Afterschool Association and The After School Corporation.